International Workshop on Structural Composites for Infrastructure Application

The issue of repairing and upgrading the existing civil engineering infrastructure has been
one of great importance for over a decade. Deterioration of bridge decks, beams, girders
and columns, buildings, parking structures and others may be attributed to ageing,
environmentally induced degradation, poor initial design and/or construction, lack of
maintenance, and to accidental events such as earthquakes. Recent developments related
to materials, methods and techniques for structural strengthening have been various. One
of today's state-of-the-art techniques is the use of externally bonded fiber reinforced
polymer (FRP) composites.
There are also many applications in the area of using prestressed FRP tendons and FRP
bars to reinforce bridges and structures. Structural engineers view the use of advanced
composites as highly promising in the construction industry currently.
The Workshop is organized on the premise that the exchange of existing American and
foreign experience in the area of utilizing FRP products in repairing existing structures is
beneficial for both parties. The workshop will focus on the repair of ancient structures
using FRP. Research related to composite materials has been carried out in the U.S.,
Canada, Europe, Egypt, and Japan. However, there has been little communication
between the American, Japanese, and European researchers. There is a need for an
international exchange of advanced experience to increase the research efficiency and to
insure that the United States is at the leading edge of engineering research. Experts from
the United States, Canada, Europe, Japan, and the Middle East will identify the topics for
future cooperative projects in the area of repair, reinforcing, and rehabilitation of
structures using FRP. Site visits will be organized to historical structures in Egypt in
collaboration with the Egyptian Ministry of Culture to investigate the possibility of using
FRP to repair monuments and historical structures (several hundred years old).
In order to ensure a productive workshop, the expected participation will be about 90
specialists from universities, research centers, bridge authorities and consulting
companies from around the world. Each participant will submit a written contribution on
one of the topics. The discussions, additional contributions and final recommendations
will be included in the Workshop Proceedings. The Proceedings will be widely
distributed in the US to researchers and code writers. The presentations will also be made
available at various professional meetings and conferences (ASCE, ACI) as well as in
professional journals.
The Workshop is scheduled for December 16-17, 2003, in Cairo, Egypt. Cairo is the
capital of Egypt and is the largest city in Africa.